Transition-Metal and Rare-Earth Systems: Magnetism and Structure

Magnetization-vector measurements are proposed for the detailed investigation of rotational magnetic processes in various spin- glass alloy systems (e.g. Copper-Manganese, Gold-Iron), including the onset of irreversibility arising from dissipative rotations of the anisotropy (initially produced by field-cooling) relative to the disordered crystal lattice. The lattice instability of the cubic phase of Yttrium-Copper (indicated by anomalous quadrupolar interactions in Holmium1-xYttriumxCopper of high x) will be probed by inelastic neutron scattering experiments. A binding-potential model for the structural instability of cubic Praseodymium-Silver1-xCopperx will be tested against neutron diffraction data on the orthorhombic compounds of high x. A series of Lanthanum2-xNeodymiumxCopper Oxide4 compounds spanning the composition for the tetragonal-orthorhombic transition will be studied magnetically for quadrupolar-coupling evidence of a lattice instability. Magnetization, specific heat, and resistivity measurements, supplemented by neutron diffraction work, will be performed on Terbium1-xYttriumxSilver and Gadolinium1-xYttriumxSilver in a study of the percolation- breakdown of the long-range antiferromagnetism with increasing x.